The Role of Water and Fluid Pathways in Low Temperature Deformation of Quartz-Rich Rocks

0087607
Onasch
Water has a profound effect on the deformation of rocks through a number of mechanical and chemical processes. Between 1500C and 3000C there is a transition regime where both processes are thought to operate is complex and as yet poorly understood ways that are affected by water. This project will attempt to identify and quantify the roles of water in facilitating the interplay of solution - related, fracture - related, and dislocation related processes during low temperature deformation of quartz - rich rocks. The approach will include use of techniques to better understand the presence and form of water in natural samples that come from a variety of structural and stratigraphic settings. Results are expected to provide a more accurate model of the role of water during deformation under subgreenschist conditions, and will be applicable to deformation processes in the upper crust.